Collaborative Research: Vertical transmission of horizontally-acquired social information: Implications for transgenerational plasticity

An individual’s traits are shaped by its genes and the environment- both its own and the environment of its parents. This passing of environmental information from parents to offspring, or transgenerational plasticity (TGP), allows parents to help offspring survive in risky or stressful environments by altering how genes are expressed (turned on or off) in their offspring. Transgenerational plasticity occurs when parents personally experience environmental stress but this research team has shown that it also occurs based on observing stress experienced by others. This socially-acquired information has important consequences for behavior and information flow within a generation, but how it influences the consequences for offspring is not well understood, nor are the mechanisms by which this information is translated to gene expression and hence phenotypic change in offspring. This project uses laboratory and field experiments in threespined stickleback, a fish with paternal-only care, to understand how offspring traits are altered when fathers receive social cues from nearby individuals exposed to predator stress relative to information derived from personal predation exposure. This work will help us predict the conditions that trigger TGP and better help us understand how and when parents prime offspring for their future environment. The project will also involve collaboration with community colleges and existing University programs to provide undergraduate students with independent research opportunities, coding workshops to train students in bioinformatics, and workshops to prepare students for transitioning from 2 to 4-year universities.

Plasticity is ubiquitous in nature and biologists are increasingly interested in understanding why plasticity occurs, when it is adaptive, and how it helps individuals cope with variable environments. While transgenerational plasticity has been widely examined when individuals are directly exposed to environmental cues (direct-TGP), less is known about how socially-acquired information alters plastic responses across generations (indirect-TGP). This project addresses this gap using threespined stickleback (Gasterosteus aculeatus) to test how socially-acquired information is used in transgenerational plasticity. The extent to which TGP is induced by parental social information is particularly important as it could result in offspring phenotypes that are responsive to the experiences of entire groups, rather than single individuals, potentially exhibiting greater suitability to future environments as a result. In this project, first, the type and intensity of paternal predation exposure will be manipulated to assess the intergenerational consequences of indirect and direct TGP. The proximate mechanisms underlying horizontal (male-male) and vertical (father-offspring) cues will then be investigated for direct and indirect TGP. Finally, field experiments will determine if social information is transmitted through neighborhoods of wild, nesting males. If both direct and indirect exposures convey information about predation risk, both should induce shifts in offspring traits. However, if horizontal cues do not allow conspecifics to gather information about the type or intensity of predation threats, there may be costs associated with indirect TGP, as well as different epigenetic mechanisms (e.g., sperm, paternal care) underlying indirect and direct TGP. Collectively, this proposal will investigate how gaining and responding to social information may be a key driver underlying the evolution of TGP in ways current research fails to appreciate.